CAREER: Computational Methods for Learning Dynamic Networks of Biological Regulation and Control

The objective of this research program is twofold: first, to develop
and apply new computational inference methods for elucidating the
underlying mechanisms of complex biological systems, and second, to
develop and enhance a series of courses that incorporate various
aspects of computational biology into both the undergraduate and
graduate curricula.

Network inference methods based on dynamic Bayesian networks are being
implemented and extended to discover models of complex biological
systems. In addition, simulation systems capable of generating
biologically plausible data are being developed to evaluate and
improve the inference methods. The aim is to apply the most effective
methods to real experimental data to produce models of the underlying
biological systems. The inference methods being developed are widely
applicable to biological and non-biological problems where models of
complex systems need to be recovered from noisy or incomplete data.
Both the inference algorithms and the simulators are designed to be
flexible and adaptable to other systems.

Insights gleaned during the course of this research program are being
folded into new courses on machine learning and the dynamics of
complex biological systems. These courses are intended to accompany
the three existing computational biology courses previously developed
by the PI. Collectively, these five courses will contribute to
shaping both undergraduate and graduate programs in computational
biology at Duke University.